Yale VIGRE Program in Mathematics and Applied Mathematics

Abstract:

The Yale VIGRE program will build on the strong base of an existing inter-disciplinary and substantially vertically integrated program by creating vertically integrated project groups (VPGs) to carry out defined research and development agendas in pure and applied mathematics, curriculum development, education and outreach. VIGRE at Yale will support undergraduates, graduate students and post-docs working together, with the guidance of faculty, for a diverse and flexible set of goals. It will provide undergraduates with a new range of opportunities to encounter mathematics in a more immediate and vital way than traditional coursework. It will broaden and deepen graduate training, and provide for shortened length of study. It will provide students and postdocs with opportunities to deepen their understanding of and expertise in teaching. It will develop and disseminate curricular materials for courses embodying new mathematical ideas, and new approaches to traditional topics.

This program is being jointly funded by the Division of Mathematical Sciences and the Office of Multidisciplinary Activities from the Directorate of Mathematical and Physical Sciences.